Biological Science Components of Africa Exhibit

Field Museum requests $1,033,456 from NSF for the geological and biological science portions of the new, 14,000 square-foot multidisciplinary exhibit on Africa. This $3.45 million permanent reinstallation will capitalize on Field Museum's extensive African collections. We intend to use these collections and other presentational strategies, broad scientific and community input to develop a sensitive and appealing exhibit that will advance central scientific themes in anthropology, geology, ecology, and conservation. A variety of techniques will be used to appeal to the individual interests, needs and learning styles of our diverse audience. Project director will be Michael Spock, Vice President for Public Programs at Field Museum. Co-developers will be Karen Hutt and Fath Ruffins. Exhibit consultants and advisors include Field Museum scientists and educators, and experts in the fields of biology, zoology, and conservation from outside the Museum. An estimated 14 million children and adults will be reached by this ehibit over the next 20 years, and extensive documentation of the exhibit development process will serve as a model for development of other comprehensive exhibits throughout the world.